Undergraduate Research Groups -- A Model Method for TeachingGenetic Engineering Technology

This project provides equipment needed to create a complete research environment as a training model within the Genetic Engineering Technology Program. This strong new program is designed to provide the conceptual and technical background needed for women to become leaders in professional fields based on modern biological research. The research environment permits training in the use of recombinant DNA techniques, DNA sequencing, and monoclonal antibodies, while teaching central concepts of molecular biology. Student research projects extend the use of relevant techniques to areas of active research, while developing self-confidence and independent thinking in women majoring in biology. The equipment (fluorescence microscope, chromatography cabinet, ultralow freezer, data acquisition computer and benchtop centrifuge) extends a successful curriculum and is housed in a new facility. With it, undergraduates can conduct research in the area of immunodiagnostics that is of potentially publishable quality, lending greatly increased credibility to the training. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.